CEDAR: Auroral Emissions Modeling

The goal of this research is to develop and test methods for inferring particle energy input to the earth's atmosphere using optical and radar detection systems, and to study the atmospheric changes caused by these fluxes. The PI will use the latest prognostic and climatological models of upper atmosphere density and composition. Auroral model results will be made available to the aeronomy community.